RIA: Analysis of Failure Mechanisms in Thin Coatings

A Research Initiation Award will support development of an analysis of the potential failure mechanisms of thin coatings. Three main forms of failure will be considered: fracture of the coating or substrate or of their interface, plastic flow in single and multiple loading, and failure by creep induced crack growth. Interfacial fracture of brittle coatings on brittle substrates will be modeled using interfacial fracture mechanics. For hard coatings on a ductile substrate a shakedown limit method will be used to calculate the cyclic plastic deformation of layered solids under repeated contact loading. In addition, models will be developed to analyze time dependent crack and void growth in thin films under high triaxial residual stresses.